Multichannel Seismic Study of the Deep Structure of a Cordilleran Orogen: The Southernmost Andes

The Andean orogen is the type example of a mountain range formed by tectonic and magmatic processes resulting primarily from the subduction of oceanic lithosphere beneath a continental margin. Knowledge of the deep structure of the mountain range and continental margin, however, is based on only limited seismic refraction profiles obtained in the 1960s. Surface geologic mapping in the southern Andes indicates that the mountain belt has been produced by both thickening and shortening of the continental crust in response to subduction related tectonism, underthrusting of the Nazca Plate beneath South America, and resulting magmatic activity related to this subduction. The present recommended award will support a study of the crustal structure beneath the Andes using marine multichannel seismic reflection techniques. Data will be acquired in fjords which traverse the Andean range, as well as in the adjacent continental shelf areas. These data will be compared to other studies of crustal structure beneath mountain ranges to test models for their formation and to examine hypotheses for the evolution of the continental crust. This is a cooperative project involving scientists at the Univ. of Texas and Lamont-Doherty Geological Observatory. Field data will be acquired aboard the R.V. Conrad.